Collaborative Research: The Hawaii-2 Ocean-Seismic-Network Borehole Observatory (HOBO)

Award is for a project to install the first operational borehole seismometer in the deep ocean at the Hawaii-2 Observatory site. ODP Leg 200 drilled and cased a re-entry hole for this purpose during December 2001. This project will develop and test an improved seismic sonde, and develop a method and apparatus to lay a fiber optic cable from the borehole1.5 km to the Hawaii-2 Observatory junction box, using a deep submergence ROV. In addition, a thermistor string will placed in a nearby, uncased hole. After installation of the seismometer, it will be tested and validated by comparison with land-based seismometers and with a seismometer located on the sea bed at the H2O site.